Enhancing Discovery-based Learning in STEM Education by Integrating Augmented Technology and Culture-based Pedagogy

The mission of the NSF Tribal Colleges and Universities Program (TCUP) is to support the strengthening of STEM education and research capacity at Native-serving institutions. The project titled "Enhancing Discovery-Based Learning in STEM Education by Integrating Augmented Technology and Culture-Based Pedagogy" and administered by the University of Hawaii-West Oahu, closely aligns with this mission. The project focuses on improving curriculum and instruction in Anatomy, Physiology, and Biology courses through the integration of locally relevant content and the use of student-centered teaching methods and virtual reality technology. Faculty involved in the project engage in professional development to strengthen their teaching skills and cultural competence in preparation for the changes in curriculum and instruction.

The project focuses on framing the curriculum in place-based content and contexts and infusing the latest technology into an inclusive, interdisciplinary learning environment. Courses in Anatomy & Physiology and Human Skeletal Biology will be restructured to employ research-based pedagogy and augmented reality tools that enhance student engagement and learning. Unique learning experiences such as field trips, guest speakers, and interactions with local STEM professionals will be incorporated into curricula, aimed at introducing students to exciting STEM research studies and career opportunities. Virtual reality tools create engaging dynamic learning environments, providing students opportunities for realistic interactions with 3D representations of anatomy. Eventual outcomes of the project include a strengthening of STEM instruction at UHWO and an increase in student retention and success in STEM degrees and careers, particularly for students from underrepresented groups.